EAGER: Bipolar Vacuum Microelectronic Devices

A revolutionary new device concept that could enable the transformation of vacuum
microelectronics from single charge carrier to bipolar devices (i.e., positive and negative charge) is
proposed. This transformation is achieved by creating and modulating both ions and electrons
simultaneously in a single vacuum microelectronic device (VMD) and has recently been
demonstrated by RTI International and Duke University. This achievement represents the first
demonstration of bipolar operation in a VMD, and the researchers believe the EArly-concept
Grants for Exploratory Research (EAGER) Program provides an ideal mechanism for exploratory
study of this new device concept, gaining a basic understanding of the new device operation and
its ultimate potential in comparison to other electron devices. These bipolar vacuum
microelectronic devices (BVMDs) have only recently been demonstrated for the first time, and
thus they are at such an early stage of development that they do not fit within either existing or
pending research programs. However, BMVDs represent a potentially transformative paradigm for
electron devices. If this proposed EAGER program is successful, it could lead to entirely new
fields of applications for VMDs in similar ways that CMOS technology transformed solid-state
electronics.

The BVMD operation provides the equivalent of a field configurable bipolar junction transistor with
all the advantages of VMDs with respect to operating temperature, radiation hardness, and high
power/frequency capabilities. This proposal will focus first on developing a figure of merit that
relates BVMDs to VMD and solid-state devices, followed by a detailed investigation of device
operation across different pressure, temperature, and operational modes. The device model will
be developed based on the COMSOL simulation platform, enabling detailed analysis of both
electron and ion flux in the device as functions of various operating conditions (e.g., pressure,
power, frequency). The simulations will be used to determine operational figures of merit and to
aid in the design, development, and testing of next-generation BVMD devices. The successful
research will enable both a better understanding of the device physics behind BVMDs and the
ability to assess their ultimate potential.